The 2018 Great Lakes Mathematical Physics Meeting

This award provides funding for US participation in the conference "The 2018 Great Lakes Mathematical Physics Meeting" that will be held June 22-24, 2018 at Michigan State University.

The conference focuses on recent developments in Analysis, especially in the field of mathematical physics. A number of distinguished mathematicians have agreed to attend and speak at this conference. This award gives early career researchers, members of underrepresented groups, researchers not funded by NSF and the like an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at:

https://sites.google.com/a/msu.edu/glamp2018/home